Travel to Attend: VIth International Conference on Chemistry for Protection of the Environment Turin, Italy 15-18 September 1987

This is a recommendation for an award to support travel costs by the applicant for his participation in the International Conference on Chemistry for Protection of the Environment that will be held in Turin, Italy from September 15-18, 1987. The applicant is a member of the organizing committee for this conference, will present a paper and chair two sessions. He also plans to present a lecture on waste reduction by industrial process modification at the Polytechnico Institute of Milan's Graduate School. The objective of this proposal are consistent with those of the Environmental Engineering Program. The applicant's qualifications are appropriate for the project he proposes to undertake. Award is recommended as an International Travel Grant in the amount of $980 for 6 months starting on June 1, 1987.